IIIrd Regional Conference on Mathematical Physics, Islamabad, Pakistan, February 18-24, 1989

Description: This project provides support for eight U.S. scientists to attend the Third Regional Conference on Mathmatical Physics planned to be held February 18-24, 1989 in Islamabad, Pakistan at Quaid-i-Azam University. A primary aim of the conference is to discuss current research in high-energy physics and cosmology, and to promote cooperation between physicists from the region (countries in South Asia and the Middle East) and with physicists from the Western World. Participation of younger physicists from the region is especially encouraged. Topics to be discussed include: 1. The Standard Model and Beyond 2. Superstrings: superstring compactification and phenomenology, multi-loop amplitudes, two dimensional conformal field theories, four dimensional superstrings, and new aspects of virasoro-algebras and 3. Cosmology: inflation, cosmic strings, quantum cosmology, blackhole radiation, and large scale structure. Both lectures and seminar sessions will be organized. Scope: Eight eminent U.S. physicists are scheduled to participate. Others are expected from CERN in Switzerland, from France, Ireland, Japan and from China. Partial support has been provided by the International Center for Theoretical Physics, and local arrangements are covered by the Pakistani hosts. This conference follows a highly successful conference by the same organizers held in Adana, Turkey in September, 1987.